United States-South Africa Study Group in Engineering Research and Education for the Manufacturing Industry

This award establishes a USA Study Group formulated to investigate engineering research and education issues related to manufacturing industries. In conjunction with a similar group funded by the Foundation for Research Development in South Africa, the interaction of the two groups will allow for a sharing of past experiences and visions for the future. The exchange focuses on human resources development issues, including programs designed to increase the number of educated engineers from population segments that traditionally do not select technologically oriented careers. Two-week visits in each other's country includes stops at representative educational institutions and the holding of focused workshops to develop reports identifying areas of possible further interactions.